Steric Interaction in Concentrated Suspensions of Monodisperse Particles

This research project addresses the problem of high rejection rates in the processing of high technology ceramic components. Rejection is often caused by non-uniform microstructure development during sintering. Polymer adsorption from various solvents is studied to provide steric stabilization of particles to allow ordering of these particles into green bodies with uniform porosity.